Acquisition of Laser Microsource for Geochronology by FTMS

This award provides one-half of the funds necessary to acquire a laser microsource for the Fourier Transform Mass Spectrometer (FTMS) system being developed for geological applications in the Department of Geological Sciences at the State University of New York (SUNY)in Albany. SUNY is committed to providing the remaining half of the necessary funds for the acquisition. The laser microsource will permit a spatial resolution of ten micrometers or better on geological samples being analyzed for isotopic ratios. This instrument design project is intended to develop the FTMS technique so that it is capable of measuring isotope ratios accurately for the dating of mineral- and rock- forming events in the geological evolution of the Earth.